Enabling Monolayer NanoElectroMechanical Systems through Engineered Piezoelectric Actuation in 2D Materials

“Enabling Monolayer NanoElectroMechanical Systems through Engineered Piezoelectric Actuation in 2D Materials”

Abstract: Modern technologies increasingly depend on sensors and actuators that are smaller, faster, and more energy efficient. However, conventional microelectromechanical systems (MEMS) are approaching fundamental limits in miniaturization and performance. This project investigates a new class of atomically thin materials that can convert electrical signals into mechanical motion and vice versa, enabling devices that are orders of magnitude thinner than today’s technologies. In particular, the research focuses on two-dimensional (2D) piezoelectric materials whose electromechanical properties can emerge or become significantly enhanced when materials are reduced to a single atomic layer. By establishing a scientific foundation for these materials and demonstrating their use in practical devices, the project seeks to enable a new generation of nanoelectromechanical systems (NEMS) with applications in healthcare, communications, robotics, and quantum technologies. A key demonstration will explore the use of atomically thin mechanical structures to convert weak electrical activity into optical signals. The project will also contribute to workforce development by training graduate, master’s, and undergraduate students in nanotechnology, photonics, and advanced materials research, while engaging broader audiences through publications, conference outreach, educational activities, and K–12 modules.

This research will establish the electromechanical properties and actuation capabilities of monolayer and few-layer transition metal dichalcogenides, with emphasis on MoS₂, CrSe₂, and CrTe₂. Although theoretical studies predict exceptional piezoelectric performance in these materials, experimental validation remains limited. The project will characterize piezoelectric, mechanical, optical, and electrical properties of suspended 2D membranes using Raman spectroscopy, photoluminescence, second-harmonic generation, atomic force microscopy, laser Doppler vibrometry, holographic imaging, electrical measurements, and ellipsometry. Experimental data will be used to extract material parameters and develop finite-element models for the design of 2D sensors, actuators, and transducers. The research will further investigate electrode architectures that maximize electromechanical actuation and will implement scalable device geometries suitable for integrated NEMS platforms. As a system-level validation, the project will integrate a piezoelectrically actuated 2D membrane with a photonic resonator to realize an optomechanical modulator capable of converting electrical signals into optical modulation with exceptionally high sensitivity. The resulting platform is expected to provide signal-to-noise ratios beyond those of conventional MEMS-based modulators. The outcomes will advance the fundamental understanding of piezoelectricity in 2D materials and establish the scientific and technological basis for monolayer nanoelectromechanical systems.